Structure and Reactivity of Pd Monolayers and Ultrathin Films

9321768 Koel Studies of the structure and reactivity of thin Pd overlayers on refractory metal substrates forms the focus of the research supported in this project. By combining ion scattering, scanning tunneling microscopy, and kinetic studies using thermal desorption spectroscopy, the differences between surface and bulk reactivity of Pd will be probed. The results of this investigation, supported by the Analytical and Surface Chemistry Program, will impact on our understanding of bimetallic catalytic systems. Chemisorption and reaction properties will be correlated with geometric and electronic effects measured spectroscopically. %%% The interaction between a catalytically active transition metal and an unreactive substrate underlies widely used bimetallic catalyst systems. This research project probes the geometric and electronic effects in bimetallic systems which control the catalytic chemistry. Information from studies of this sort provide the knowledge base for the design and manipulation of heterogeneous catalytic materials. ***